Postdoctoral Fellowship: MSPRF: Combinatorial Models and Scaling Limits in Liouville Quantum Gravity and KPZ

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Andres Contreras Hip is “Combinatorial Models and Scaling Limits in Liouville Quantum Gravity and KPZ”. The host institution for the fellowship is Columbia University and the sponsoring scientist is Ivan Corwin.